Travel Grants for Hydroinformatics 2000 4th International Conference

0001671
Patel

This proposal seeks partial funding to support the Hydroinformatics 2000 Conference organized by the Iowa Institute of Hydraulic Research during July 23-27, 2000. This is the fourth conference in a bi-annual series, but the first to be held in the United States. As such, it offers the first opportunity to gather a multidisciplinary group of U.S. and international researchers to address a wide range of topics and technologies that impact water resources planning and management. The conference details are given in www.iihr.uiowa.edu/hydro2000. NSF funds will be earmarked to support participation by leading researchers and practitioners from developing countries and countries in Eastern Europe, and participation in associated workshops by graduate students from the United States.